IUC: Experimental/Theoretical Study of As Deposited/Hydro- genated LPCVD Polysilicon for Load Resistors, Emitter Contacts and TFT's

Experimental and theoretical studies of poly-Si thin films are conducted. The primary thrust is directed towards: (1) enhancing fundamental understanding of high field I-V behavior, including switching; (2) extensive characterization of temperature coefficient of resistance in low and high doping limits; (3) achieving comprehensive understanding of TFT operation in poly-Si, including the inversion mode operation; and (4) modeling the effect of poly-Si emitter contacts used in bipolar applications.